REU Site: Molecular Biology

This award provides funds to the Microbiology Department of the University of Texas at Austin to continue their successful REU Site program designed to introduce gifted undergraduates to productive molecular biology laboratory research. A ten-week summer program, involving ten students each year, will provide to each participant a stipend, room & board and tuition for an independent research course. Participants will be actively recruited nationwide, but emphasis in recruitment and selection will be given to undergraduates who would not otherwise have the opportunity for original research, especially minority students. Students will work in well-funded and equipped labs in which the research covers both prokaryotic and eukaryotic systems and deals with membrane transport, DNA replication and recombination, gene expression and developmental control, immunological mechanisms, and viral transformation. Participants will work individually with faculty mentors but have access to all faculty through seminars and informal discussions, in a format similar to that of our successful earlier programs. New aspects in this year's program include discussion of scientific ethics issues and emphasis on opportunities in biotechnology. Follow-up activities will promote interest in research careers and encourage students to apply to graduate schools in molecular biology. UT Austin makes a strong commitment to this program, including support for a dedicated program coordinator.